SGER: Proposal forModeling the Dynamics of Shape Change in Liquid Crystal Elastomer Systems

Liquid crystal elastomers (LCEs) are rubbers whose
constituent molecules are orientationally ordered, with their
salient feature being a strong coupling between the orientational
order and mechanical strain. A characteristic feature of LCEs is
that relatively small external effects, such as changes in
temperature or onset of illumination, can produce huge and rapid
deformations. LCEs will likely assume real technological
importance due of their softness and their ready responsiveness
to applied fields, yielding applications in microfluidic pumping
and switching, and helping to answer basic questions in
locomotion. By extending the theory of rubber networks, the
investigators develop and explore continuum descriptions of these
materials, and study how LCEs behave in the bulk and in
interaction with an external fluid, and begin to develop
simulational methods for these systems. Parallel to the
theoretical study is an experimental program that involves the
applications of LCEs, such as to locomotion, but also to new
materials synthesis.

Liquid crystal elastomers (LCEs) are active flexible
materials whose constituent molecules can be reoriented or
disordered by applying electric or temperature fields. A
consequence of this is that relatively small external effects,
say in temperature changes or an onset of illumination, can
produce huge and rapid deformations of the material. The
investigators have already demonstrated that LCEs can have
fascinating dynamics when interacting with a fluidic environment,
such as the observed "swimming" of floating LCE samples away from
an illuminated region. These materials may be of technological
importance due of their softness and responsiveness, suggesting
applications in microfluidic pumping and switching, and helping
to answer basic questions in locomotion. To fully exploit these
materials the development of soundly based mathematical models is
crucial. The investigators develop mathematical descriptions of
these materials, and seek to understand the ways in which LCEs
interact with applied fields and with their environment.
Parallel to the theoretical studies is an experimental program
that involves the applications of LCEs, such as to locomotion,
but also to new materials synthesis.